Coordination of Pale Research: Steering Committee Working Group

This award supports the operation of the PALE Steering Committee for the Paleoclimate of Arctic Lakes and Estuaries (PALE) initiative as part of Arctic Systems Science (ARCSS). The Steering Committee will develop science and management plans for this program and will be active in the implementation of the research activities. Pale is entering a critical phase of data collection, synthesis and interpretation. This award will support 1) annual meetings of PALE researchers for the exchange and synthesis of results, 2) small workshops to address specific research needs, and 3) Steering Committee efforts to coordinate projects and maintain communication among PALE researchers.